MRI: Acquisition of a NUMA-based Supercluster for High Performance Computing

This project, enabling high performance computing, aims at purchasing and operating a supercluster to complement current federal and state investments and help drive related research and educational activities. The institution has initiated a collaborative enterprise among the Department of Computer Science and Engineering and five other PhD-granting departments from the Colleges of Engineering and Science (Biomedical Science, Chemistry, Electrical Engineering, Mathematics, Physics, and local industries) and has established a Center High Performance Computing. Housed in the Center, the cluster involves research groups from computer systems and scientific computing. The Center services:
-Research: on high performance computing;
-Development: tools for parallel programming on the supercluster;
-Service: other departments on campus, and also local community, such as area high schools;
-Education: computing environment enables courses for students to gain hand-on experience; and
-Collaboration: joint research with local industries to develop advanced tools for designing and executing parallel programs.

The research projects, many involving extensive computation, include:
-Porting of TICC-PP software infrastructure to Linux
-Video coding,
-Biometrics,
-Mathematical problems, Physics of materials, and
-Genomics.

Broader Impact: The platform fosters collaborations with local industries, higher and K-12 education, and government agencies. Moreover, it contributes to train a diverse population of students in high performance computing.